Gallium Arsenide Electronics for Infrared Sensors

The focus of this research is in gallium arsenide analog preprocessing electronics for infrared focal plane array sensors. In particular, analog preprocessors for high-performance read out and preprocessing functions in linear z-dimension using gallium arsenide integrated circuits are developed. These circuits are evaluated for applications in sensing using infrared focal plane array sensors.